REU Site: Materials Research in Chemical Engineering

The University of South Carolina operates a Research Experience for Undergraduates (REU) Site in its Chemical Engineering Department. The objective of the REU Site is to provide chemical engineering undergraduate students with experiences in areas related to materials research. Undergraduates are offered research projects in three areas: inorganic materials as catalysts and adsorbents, materials for power sources, and polymers. Ten students are recruited nationwide every year for a ten-week summer research experience. In addition to participating in individual research projects, students attend weekly technical seminars and career workshops, visit industrial sites and participate in group social activities.